Acquisition of an Inductivity Coupled Plasma Spectrometer

Northwestern University will purchase an inductively coupled plasma spectrometer in order to carry out analyses of chemical elements in the fields of anthropology, biophysics, and bioinorganic chemistry. The instrument is needed by the faculties of the Department of Chemistry and the Department of Biochemistry, Molecular Biology, and Cell Biology for research in the following areas: 1. Diet and the inorganic analysis of excavated human bone 2. Heavy metals in biological systems 3. Long-range electron transfer and hemoglobin function 4. Polynucleotide coordination chemistry of metallocene antitumor agents At present, the institution does not have an inductively coupled plasma spectrometer, so its acquisition will be a significant addition, enhancing both current and future research efforts.